A Workshop on Industrial Mixing Research Needs: University of Maryland, March 22-23, 1989

Mixing phenomena are pervasive in industry. Despite decades of research, our understanding of mixing remains largely empirical. This workshop will seek to identify and prioritize research opportunities which have the potential to significantly impact industrial practice in the area of mixing.